Iron-Based Coating for High Temperature Metalforming Applications

An SBIR Phase I Award will support optimization of a newly developed iron-based high-boron coating for high temperature tribological applications, particularly in the area of metal forming. Tribological performance will be correlated with microstructure in order to determine the optimal deposition conditions for various applications.